Technology-Enabled Content in Engineering Science Curriculum

Given the reduction in the number of students interested in preparing to become
engineers, increased emphasis must be paid to retaining the students who do
matriculate. Building on previous work at the University of Cincinnati, faculty in the
schools of engineering and education collaborate on the use of instructional
technologies as a mechanism for delivering materials that accommodate a variety of
learning styles. Instructional materials based upon research into the use of instructional
technologies improve student engagement and exploration. It is expected that this
change can increase student satisfaction and performance in fundamental engineering
science courses and their interest in fields of engineering and engineering technology.
Modules, to be developed and tested are in Strength of Materials and Industrial
Controllers.